MGR Horonable Mention: Monica Russel-Rodriguez.

This special award will give Ph.D. student Monica Russel- Rodriguez additional flexibility in pursuing her graduate studies and research initiation in cultural anthropology. This award will strengthen minority participation in research in this area.